Terminal Millennial Synthesis of Decadal-to-Millenial-Scale Climatic Records of the Last 80 ky

This proposal will provide support for US scientists to participate in an international workshop designed to synthesize high-resolution data sets of climate and ocean change over the last glacial/interglacial cycle. Emphasis diverse records, including an assessment of the effect of radiocarbon variability and identification of high-frequency cycles.